Atoms, Defects and the Kinetics of Phase Transformations

A fundamental understanding of the kinetics of phase boundaries, and
more broadly hysteresis, remains an open challenge in the study of
active materials. The lack of kinetic information is a consistent
difficulty in various problems including dislocation mechanics and
growth of thin films. The research in the current award, though
focussed on active materials, will impact these areas. There is now
an accepted framework to model this based on the notion of kinetic
relations, but it is phenomenological in that it does not address why
some phase boundaries are more mobile than others and how one can
change the mobility. This project examines through computation and
rigorous mathematics whether one can derive a kinetic relation
starting from a more fundamental or smaller scale description of
materials in the context of displacive phase transformations. Two
scales are of particular interest, atoms and defects. First, the
project seeks to understand the atomic-continuum linkage by starting
from an atomistic (discrete) model capable of phase transformations
and passing to the continuum in such a manner that captures the
essential dynamics of the phase transformation process. Second, the
project seeks to understand the role of defects such as vacancies,
impurities and second phase precipitates in determining the overall
propagation of a phase boundary. This leads to the mathematical problem of
homogenization of a non-local free boundary problem.

Active materials like shape-memory materials and ferroelectric
materials possess unusual but useful properties that make them vital
for a variety of applications like dental braces, cardiac stents,
space antennas, ultrasonic devices, pressure sensors and
microactuators. The unusual properties arise from very
characteristic and intricate patterns that these materials can form
at a microscopic scale. Over the last
decade, much advance has been made in understanding the nature of the
microstructure, its relation to basic crystallography and its
consequences for material properties. In particular, a sophisticated
mathematical theory for static microstructures has emerged, and this theory has had

important practical impact by predicting and explaining new phenomena and applications.
However, much remains unknown regarding how the microstructure
changes as we apply stress to these materials. This is important
since it determines an important property of these materials known as
hysteresis or shape memory. Work supported by this award will
build a mathematical theory of the evolution of microstructure.
It will also train graduate and undergraduate students in research in
the emerging and important area of multiscale modeling.